Template Structure and the Mechanism of RNA Synthesis

The goal of this research is to use both a biochemical and genetic approach to study how bacteriophage QB synthesized RNA and stores the information that promotes its own transmission and multiplication. Using a cloned cDNA of the QB replicase cistron, experimental systems have been developed that uncouple replicase function from replicase synthesis. Using these systems, site- directed linker insertion mutations have been put in the replicase coding sequences and then these were assayed for the effect of each mutation on replicase activity and also QB genome function. Previous results have enabled the separation of the RNA sequences that code for activity replicase from the sequences that are required for template recognition, chain elongation, and translational regulation. More recently phylogenetic sequence comparisons between two different bacteriophage RNAs have located several conserved regions of RNA and amino acid sequence that may have functional significance. These sites will be targeted for site-directed mutation and delection analysis. The mutant replicases and genomic viral RNAs that carry the different alterations will be studied both in vivo and in vitro to determine the effect(s) of each change. This library of mutants will provide important information about the different functional domains of the replicase genes coding sequences as well as the active sites contained within. Why study an RNA virus Replicase? Since RNA viruses are one of the few self-reproducing units that use a genetic material other than DNA, the survival problems faced by these genomes have few parallels elsewhere in biology. They infect representatives from all known life forms including prokaryotes, fungi, animals, and plants; and because of the high error rate exhibited by their polymerases during multiple cycles of replication, RNA genomes can diverge rapidly.